Algorithms for Macromolecular Modelling 2004

Skeel
0406516

The investigator and his colleagues organize an international,
multidisciplinary workshop on computational methods for macromolecular
modeling. The goal of this workshop is to assess the state of the art
in the development of algorithmic tools for simulation of large
molecules. Molecular simulation is now a standard tool for studying
vast plethora of chemical processes ranging from applications in
nanotechnology to the identification and prediction of biomolecular
structure and function. To date, many challenges have been addressed
in an incomplete manner, and there is a continuing demand for high
quality algorithms and supporting mathematical theory for high
performance computations. The principal topics of the meeting are
algorithms for force evaluation, integration, optimization, and
sampling; methods for structure prediction, reaction paths, free
energy profiles and conformational dynamics; modeling of force fields
and implicit solvents; and multiscale techniques for quantum-classical
and classical-elastic models. Exchange of information about the
latest results stimulates research progress and avoids duplicate
efforts, especially because there are infrequent international
meetings devoted to this topic. Even more, it makes chemical and life
scientists aware of valuable computational and mathematical
techniques; and at the same time, it makes mathematical scientists
aware of the specific nature of the problems and exposes them to
insights into their solution. The program for the meeting, including
abstracts and a report of the open discussion, is made available on
the web. The meeting consists of plenary talks by leading experts,
parallel talks by junior and senior researchers, and a structured
discussion session. Most of those supported by this grant are junior
researchers or members of underrepresented groups.

Computer simulations can provide information about the geometry and
behavior of biomolecules and other large molecules that is difficult
to obtain experimentally. Such information is central to
biotechnology, materials science, and nanotechnology. However,
current computational methods often consume up to weeks of computer
time and are often of limited reliability. To consider these issues,
the investigator and his colleagues organize the multidisciplinary,
international workshop "Algorithms for Macromolecular Modelling" on
August 18-21, 2004 at the University of Leicester in the United
Kingdom. The purpose of the workshop is to stimulate research on the
construction of yet faster and more reliable methods for
implementation in simulation software. This is best achieved by
combining the expertise of mathematical scientists with the physical
insights of chemical and life scientists. This workshop is almost
unique in the emphasis that is gives to both the needs of the science
and the mathematical details of the simulation software. The meeting
consists of plenary talks by leading experts, parallel talks by junior
and senior researchers, and a structured discussion session. This
project supports travel for United States participants in the
workshop; most of those supported are junior researchers or members of
underrepresented groups. The results of the workshop are disseminated
through a dedicated website. In addition, the collected scientific
articles by the invited speakers will be published in Springer
Verlag's Lecture Notes series in Computational Science and Engineering
(LNCSE).